Affine Structures, Non-archimedean Analytic Geometryand Mirror Symmetry

Abstract

Award: DMS-0504048
Principal Investigator: Yan Soibelman

The project is devoted to the study of the relationship between
manifolds with integral affine structure and Calabi-Yau manifolds over
non-archimedean fields. It offers a new approach to Homological
MIrror Symmetry based on the ideas of collapsing Calabi-Yau manifolds
developed jointly by P.I. and Maxim Kontsevich. Part of the research
is devoted to an unexpected analogy between classical integrable
systems and Calabi-Yau manifolds over non-archimedean fields. This
analogy leads to different approaches to integral affine structures:
one is via a kind of Liouville integrability and another one via the
notion of skeleton introduced by P.I. and Kontsevich. The problem of
reconstructing a non-archimedean space from the skeleton with
(singular) integral affine structure is raised. The solution is given
for K3 surfaces. Non-commutative version of the above analogy is also
a part of the project.

One of the most challenging problems of modern physics is the
unification of all known forces under the roof of one
theory. Most promising candidate for such unification is String
Theory. It is far from being finished. Proposed research is
devoted to mathematical foundations of Mirror Symmetry, which is
one of the better understood parts of String Theory. It is also
devoted to unexpected mathematical analogies motivated by Mirror
Symmetry. Hopefully this researh will give new theoretical tools
for study microstructure of our world via better understanding of
the underlying local geometry.